U.S.-Mexico Research: IUMRS-ICAM 95 The Fourth International Conference on Advanced Materials, Cancun, Mexico; Aug. 27-Sept. 1, 1995

9503622 Chang This U.S.-Mexico award will help to support attendance to the Fourth International Union of Materials Research Societies' International Conference on Advanced Materials (IUMRS-ICAM 1995), that will take place in Cancun, Mexico from August 27th to September 1, 1995. Support will be aimed at attracting promising investigators at the start of their research careers. Applications will be submitted in response to announcements to be published in major U.S. materials societies' bulletins. An international organizing committee, chaired by the principal investigator, Dr. Robert Chang of Northwestern University, will select the U.S. participants. This conference, which is co-sponsored by the International Union of Materials Research Societies (IUMRS) and the Mexican Academy of Materials (AMM), will provide an opportunity for materials scientists from around the world to discuss their latest discoveries. Thirty-two symposia on advanced materials will be presented by leading scientists in their fields, and a series of proceedings of the conference will be published. In addition to providing a valuable forum to exchange ideas, the conference will encourage the development of collaborations, particularly among scientists from Canada, Mexico and the United States. This award is jointly supported by the Division of Materials Research and the Division of International Programs of NSF. ***